Special Project: Connecting Minority Educators by Enhancing Minority Participation in NECC 2000

EIA 00-02553
Mitchell, Helena
Clark Atlanta University

Special Project: Connecting Minority Educators by Enhancing Minority Participation in NECC 2000

This project supports the travel and registration of 115 K-16 educators
affiliated with selected Historically Black Colleges and Universities,
Minority and Minority Serving Institutions, to the National Educational
Computing Conference (NECC) to be held in June 2000 in Atlanta Georgia.
The NECC is one of the largest K-16 educational technology conferences that
attracts more than 8000 educators and 3000 exhibitor personnel. The
anticipated outcome of NECC attendance is the formation of a network of
educators in K-12 and higher education that would share ideas and knowledge
regarding the use of learning technologies in their classrooms. Through
coordinated, structured activities, this project will demonstrate increased
minority participation in NECC, increased use of technologies in targeted
K-16 schools, and increased benefits (e.g. panels, papers, programmatic
initiatives) from partnerships between K-12 schools and the selected higher
education institutions.